Extensions of Liouville quantum gravity

The project focuses on extensions of the theory of Liouville quantum gravity (LQG). LQG is a theory of random surfaces with connections to many areas of math and physics. In physics, LQG surfaces can be viewed as a model of quantum gravity in a two-dimensional universe, and hence as a toy model for quantum gravity in the real world. LQG surfaces are also important in string theory and conformal field theory. There is extensive mathematical literature on LQG, including deep connections to other mathematical objects such as random curves, random graphs, random permutations, Riemann surfaces, and mathematical quantum field theory. This project also provides research opportunities for graduate students.

The planned direction of study is to develop a better understanding of the so-called supercritical, a.k.a. strongly coupled, phase of LQG. This phase is much less well-understood in math and physics than the subcritical phase, but it is potentially more interesting from the perspective of string theory. Another planned topic of investigation is the extent to which the theory of LQG can be extended to dimensions three or higher, in which one considers random manifolds rather than random surfaces. A third direction of study is the large-scale behavior of directed distances in random planar maps. Such directed distances are closely connected to the longest increasing subsequences in random permutations. They are also discrete analogs of a hypothetical directed version of the LQG metric, which is an LQG analog of the directed landscape (another model of random geometry which has been studied extensively).